Acquisition of Micro Laser Raman Spectrometer

9724331 Archer This proposal requests $120,123 to purchase a micro laser Raman spectropotometer for polymer and biomedical research applications, and for classroom instruction. Five research projects will utilize the equipment. These projects include the monitoring of small molecule transport on polymer surfaces, the stability of polymeric matrix composites, the interaction of B-amyloid peptides with cell membranes, and for tissue characterization. The equipment will also be used in a newly developed course on biomedical optics. ***